Heterochromatic Loci and Position Effects in Drosophila

9406691 Wakimoto The chromosomes of higher eukaryotes are comprised of two cytologically distinct domains known as euchromatin and heterochromatin. These regions differ in the extent of condensation, with heterochromatin remaining tightly condensed throughout the cell cycle.The structure and function of heterochromatin will be examined through the study of a set of genes that reside within the heterochromatin on the left arm of Chromosome 2 (2LH) of Drosophila melanogaster. Specific repetitive DNAs isolated from 2LH will be tested for the ability to confer the properties of heterochromatin and will be assayed for effects on chromosome morphology, heterochromatic and euchromatic gene expression and gene dosage using germline transformation and chromosome rearrangements. %%% The long range objective of the proposed project is to define the molecular determinants of higher order chromosome structure and the functional significance of heterochromatin. The structure and function of heterochromatin will be examined by inserting heterochromatic repetitive DNA sequences into the genome of the fruit fly and assaying for effects on morphology, gene expression and gene dosage. ***